Science and Technology on SOUNDPRINT

Proposal No. ESIE 93-55633 Proposal Name: SCIENCE AND TECHNOLOGY ON "SOUNDPRINT" PI: Moira Rankin ABSTRACT The SOUNDPRINT Media Center is producing a series of radio documentaries entitled "Science and Technology on SOUNDPRINT," a set of related educational and outreach materials, and multimedia non-broadcast applications. The project will include 16 original science documentaries and 21 programs repackaged as special broadcasts distributed to over 200 public radio stations in the United States, reaching over 750,000 listeners, and ten countries around the world. The programs also will be distributed on Internet Talk Radio. The 16 new Programs will be grouped around three themes: "The Butterfly Effect" which will bring large scientific concepts describing global change to a more human level, "Technology and Culture" which will consider the implications of technology, and "The Consequences of Science" which will look at the broad implications of scientific research. The Executive Producer for the project is Moira Rankin. Neenah Ellis will serve as Senior Producer and will work directly with independent producers in story and script development. The Science Editors will be Ann Finkbeiner, a freelance science writer, and Barbara Culliton, Deputy Editor of "Nature."